Molecular Analyses of Enzyme Polymorphisms in Drosophila

One of the basic goals of evolutionary biology is to assess the extent and the nature of the genetic variability that occurs in natural populations and to determine the roles that different types if variants play in adaptive evolutionary change. In recent years, a great deal of information has been obtained about the variability of DNA sequences in natural populations. However, there is still very little information about the possible effects of the sequence variants on the phenotype of the organism. The general goal of this project is to begin to fill this gap by determining the molecular basis (in terms of DNA sequence variations) of naturally occurring variation in the expression of the enzyme alcohol dehydrogenase (Adh) in model organism, the fruit fly Drosophila.The specific goals of the project are briefly summarized below.Previous studies have shown that a large part of the genetic variation of ADH activity levels within D. melanogaster populations is associated with the segregation of two common allozymes, which differ by a single amino acid, Fast homozygotes generally have a two to three fold higher activity level than Slow homozygotes for two reasons: they have a higher concentration of ADH protein and the Fast protein has a higher catalytic efficiency. One specific goal of the proposed work is to determine what DNA sequence alteration(s) cause this ADH concentration difference between the allozymic classes. A second specific goal is to investigate the genetic and molecular of a threefold difference in ADH expression between two species, D. simulans and sechellia.